Collaborative Research: Proprioception by fish pectoral fins: Is fin sensation tuned to fin mechanics and pattern movement?

In animals, normal limb movements such as walking or reaching require sensory information from the limb regarding their movements and mechanics. While fishes use their limbs (or paired fins) for a diverse array of behaviors, little is known about the role sensory abilities plays in those functions. This project examines the fundamental question of how the sensory and motor elements of the fin propulsive system co-adapt to generate a functional neuromechanical system. In particular, it will determine how physical properties of the fins such as stiffness, size and shape, are reflected in the biological instrumentation of the fins for sensation. In addition to providing a new tractable model for studying integration of sensation and movement, data from this project will inform the design of fin-inspired propulsive devices for underwater vehicles. The broader impacts of this project will provide outreach experiences for children on the South Side of Chicago as well as opportunities for undergraduate and graduate training in the laboratory and builds educational activities at the Field Museum of Natural History.